An Integrated Virtual Learning System For Programmable Controller

Engineering - Engineering Technology (58)

Programmable logic controllers (PLCs) are an essential part of manufacturing
automation. Thousands of these devices have been used in manufacturing plants for such
applications as monitoring security, managing energy consumption, and controlling
machines and automatic production lines. However, because of limitations in equipment
availability, it is often difficult for students to gain the experience needed to become
proficient with PLCs.
This is a proof-of-concept project to develop an integrated virtual learning system for
programmable logic controllers. The system is initially being utilized as an
instructional/laboratory aid within the Manufacturing Engineering Technology program
at Texas A&M University. This system is integrating the strong educational emphasis of an intelligent tutoring system with the technological innovation of a PLC emulator and the attraction and motivation of a game. Each component is being developed and evaluated both internally and externally. Evaluation criteria includes instructional effectiveness and lesson content appropriateness. Results are being disseminated within the academic and industrial communities via the Internet. If the concept is proven, the methodology will be replicable and applicable to several other types of equipment and technical laboratory courses.